Advanced Coding for Multidimensional Channels

This project studies the theory of multidimensional
channels and develop effective coding techniques for such
channels. The coding techniques investigated are of three
types: error-correction channel coding, constrained coding,
and joint source-channel coding. Emphasis is placed on
applications to two-dimensional magnetic and optical
recording as well as three-dimensional holographic
recording. These are the storage devices of the future.

The investigation involves code design, theoretical analysis,
and computer simulation.

The main topic areas investigated for multidimensional
channels are:

Interleaving techniques in two and three dimensions
Multidimensional codes correcting cluster errors
Constrained coding and defect avoidance for
multidimensional media - Progressive source coding for
multidimensional channels - Index assignment for
multidimensional channels

Multidimensional storage devices require a completely new
theory and new technical breakthroughs, since most of the
existing theory for error-correcting codes, constrained
codes, and source-channel codes was developed in the context
of one-dimensional applications. The problems associated
with multidimensional channels are usually much more
challenging than their one-dimensional counterparts.

In particular, interesting technical problems arise due to
the spatially dependent nature of errors and constraints in
multidimensional recording media. New error-correcting codes
and interleaving techniques are needed to effectively
protect data stored on such media. The study of constrained
coding for multidimensional channels is still in its infancy
, and needs substantial further research to blossom into a
theory. Joint source-channel coding techniques are needed
to maximize the recovered source fidelity for images and
video stored on multidimensional devices.